Support for the Activities of the Intergovernmental Oceanographic Commission (IOC)

This interagency transfer to NOAA will support the Intergovernmental Oceanographic Commission in activities involving the coordination and development of programs benefiting the international community, including the U.S. These include electronic mail services and the Continuous Plankton Recorder Survey.